Geological and Geophysical Studies in the Ford Ranges of Marie Byrd Land, West Antarctica

The research goal of this project is to determine the tectonic history of the Ford Ranges in Marie Byrd Land (MBL), West Antarctica. Events in MBL may relate to the tectonics of the Gondwana Pacific margin prior to and following Late Cretaceous rifting. Western Antarctica has been described as a collage of microplates which apparently have been closely related to each other and Antarctica since Jurassic; the relation of MBL to these microplates for this time period is less clear. Strongly metamorphosed rocks in the Fosdick Mountains may be the center of a metamorphic core complex formed during the rifting of the Gondwana Pacific margin. During the first project year, an existing rock suite from the Fosdick and Phillips mountains will be studied. In addition, scientists will analyze satellite imagery preparatory to field mapping. Two field seasons are planned. Geologic mapping, petrology geochronology, and paleomagnetic studies will be conducted, and will provide data needed to reconstruct a tectonic evolution of Marie Byrd Land.